Symbolically Finding Key Equations in Both Analysis and Engineering and Roots of Hereditary Polynomials

The investigator develops efficient algorithms, as well as
additional techniques and methodologies, that can be used to
solve the noncommutative algebraic components of problems in
analysis and engineering. The noncommutative algebraic component
of such a problem consists of solving a collection of equations
where each of the variables represents a matrix or bounded linear
transformation. Solving such problems involves manipulating this
collection of equations until it is amenable to numerical
solution or until the manipulated collection has some desirable
property. Methodologies based on noncommutative Groebner basis
were developed in a paper by J. William Helton and the
investigator in 1998 and these techniques are effective for
solving a short list of problems. Several directions of study
for the current project include removing the need for additional
"invertibility assumptions," removing redundant equations, and
finding appropriate changes of variables. The new approaches
should widen the range of problems that can be solved.
Ordinary arithmetic is commutative: 2 times 5 is the same as
5 times 2, and in fact A times B is the same as B times A for any
numbers A and B. The arithmetic of matrices -- rectangular arrays
of numbers that can represent, for example, the forces on
diferent parts of a bridge or airplane -- is not commutative: A
times B is not always the same as B times A. The development and
implementation of algorithms for solving collections of
polynomial equations spurred a great amount of activity in
commutative algebra. In an analogous way, the development of
algorithms and methodologies for solving collections of matrix
equations can have a dramatic impact on solving engineering and
analysis problems that have noncommutative algebraic components,
where the order in which components of the calculation are
arranged can change the answers. With currently developed
techniques, some computations that arise commonly in engineering
require a considerable amount of time to perform by hand, but can
be done very quickly on a computer. The development of new
methods for noncommutative algebra should significantly increase
the number and types of problems that can be solved efficiently
with the assistance of computers.